Research-based Science Curricula: Developing Methods to Determine How They are Used in High School Classrooms -- A Small Grant for Exploratory Research

0003857
MILLER

Although there is a research base for how students learn many of the concepts in science, there is almost no research on the effectiveness of research-based curricula in classrooms. The project provides the necessary tools and instruments to facilitate future research on how teachers use inquiry-based science curricula in high schools. Developers are interviewed to determine their goals for the materials. Publishers and implementation site personnel are interviewed to determine their view of how materials are implemented in the classroom. Focus groups of teachers help set the issues to be investigated. Instruments are developed and tested in classrooms by observing and interviewing teachers. The preliminary research results and model instruments are published.